Support to Enhance the Accessibility of the Herpetological Collections of the FMNH

The herpetological collection of the Field Museum of Natural History contains 234,000 catalogued representatives of the world's amphibians and reptiles, including 1,226 types. The collection is the fifth largest herpetology collection in the U.S., and the Museum administration has recently added significantly to that portion of the building assigned to the collection. Dr. Harold Voris, Curator in charge of the collection, is planning additional storage equipment for this expansion project, including an ultra-cold freezer for the frozen tissue collection. New research areas will be constructed and equipped for visiting scientists, and data from the field note, frozen tissue, and histological slide collections will be added to the collection database. The proposed improvements to this important herpetology collection will increase its value to and impact on the research community. Improvements to the database will make specimens more available for study and loan, and the new lab space for visiting herpetologists will be heavily used. Natural history collections such as this are the primary resource for studying biological diversity on earth, and their continued improvement is essential for future generations of researchers.